High Resolution Climate Change During the Last 13,000 Years:A Sediment Trap and Sediment Core Study of the Gulf of California

Thunnell 9301413 Funds are provided to allow the PI to continue his study of the varved sediments and sediment-trap material from the Gulf of California collected during "normal and ElNino years. Sediment trap material will document the seasonal cycle of sediment input into th Gulf and the climatological factors that control this cycle during both norrnal and El Nino conditions. From sediment core study the record of annual to decadal scale climate changes will be constructed for the past 13 k years. The proposed study has significance beyond the boundaries of the Gulf. It will provide a detailed picture of the basin-wide impacts of climate changes during normal conditions and the El-Nino perturbations.